The Third DMJ/IMRN Conference

The 3rd Duke Mathematical Journal Conference will be held at Duke
University Friday, April 23 through Sunday, April 25, 2004. The goal of
the conference is to bring young mathematicians together for a weekend of
high quality mathematics. There will be talks by eight leading young
mathematicians on diverse subject areas which are regularly represented in
the journal.

Prior to the Conference, speakers will distribute introductory material
related to their talks via the conference web site. All talks will be
videotaped and made available on the Web, along with the speakers' notes.
This will benefit the participants as well as the broader mathematical
community. The conference will also benefit the mathematical community in
the south-eastern US by providing a high-quality mathematical experience.